Postdoctoral Research Fellowship in Chemistry

Dr. Jeffrey Garner Forbes has been awarded a Postdoctoral Fellowship in Chemistry. Dr. Forbes' doctoral degree was from the University of Illinois under the supervision of Professor Eric Oldfield. He intends to continue his research at the University of Illinois under the sponsorship of Professor Andrew J. Gellman. Dr. Forbes area of postdoctoral research will be atomic-scale study of the forces between surfaces.